SBIR Phase I: PIC: Hitless III-V/Si Widely Tunable Laser with Back Reflection Suppression

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to develop a universal design kit for silicon photonics that will include, for the first time, the ability to design and produce, in a fabless model, a cost-effective, silicon-controlled, tunable laser.

The proposed project goals will include the analysis, design, and fabrication of silicon photonic integrated circuits for back-reflection suppression. A key research objective will be to enable the design of a customized, silicon-controlled, tunable laser capable of insertion into a high-speed data communication link based on hybrid III-V/Si integration. A key development objective will be to enable the assembly and manufacture of the silicon photonic integrated circuits using industry-accepted back-end-of-line integration methods.